U.S.-Brazil Cooperative Research: The Production and Fate of Algal Extracellular Polysaccharides in a Eutrophic Reservoir Near Sao Paulo, Brazil

This US-Brazil award provides support for cooperative research between Dr. Kenneth Mopper, Washington State University, and Dr. Armando A. H. Vieira of Federal University of Sao Carlos in Brazil on the production and fate of algal extracellular polysaccharides in a eutrophic reservoir near Sao Paulo, Brazil.

The PIs will work on an ecosystem in which large quantities of dissolved polysaccharides are produced by only a few species of cyanobacteria in a heavily eutrophied reservoir. The main goals are to investigate the ecological functions and environmental implications of the microalgal extracellular polysaccharides (EPS) that are produced in great abundance in this reservoir.

The results from these studies will be used as a basis for eutrophication management and water restoration programs both in Brazil and the U.S. In addition, the PIs will train personnel and students in conventional and non-conventional limnological techniques.